Reaching For Excellence In Secondary School Science

This project, sponsored by East Tennessee State University, will provide a six-week summer program for each of three years for 28 teachers and 7 principals. The participants will be selected in teams of two middle school science teachers, two high school science teachers and one principal all from the same school district. The summer program will teach an integrated science curriculum emphasizing hands-on-science and problem solving as required by the new Tennessee State curriculum guideline. The participants will return to the schools to carryout leadership activities in the schools. Altogether it is expected that 100 teachers will be served by the project each year. The project will be coordinated with a previous K-6 project and thus a coordinated K-12 science curriculum will be developed in the target schools. The NSF grant is being matched by local funds in an amount equivalent to about 30%.